Conference on Dynamics and Defects In Liquid Crystals; Cuyahoga Falls, Ohio

9528953 Palffy-Muhoray Support for this conference on Dynamica and Defects in Liquid Crystals will make possible the full participation of young researchers and established scientists working in the field of liquid crystals. The conference aims to establish the current state-of-understanding of dynamics and defects in liquid crystals by relating recent theoretical developments and experimental results. The relevance of the results for the new generation of liquid crystal displays will be determined, and key outstanding problems and future research directions will be emphasized. %%% This conference will bring together scientists working in an area of considerable national importance. Materials areas related to liquid crystals for displays is of high priority, and this group will address interdisciplinary problems that range from fundamental science to manufacturing issues. ***